COCORP Seismic Data Processing: Upgrades for Supercomputing

The Consortium for Continental Reflection Profiling (COCORP) is currently involved in seismic research of the continental crust that requires intensive computer use for data reduction, storage and interpretation. This proposal from COCORP requests hardware and software for integrating COCORP computing with the new Cornell Supercomputer Facility. The data to be interpreted is expected to make major contributions to understanding the deep geology of the continental crust all over the world. The dedicated minicomputer system utilized by COCORP to date cannot fully accomodate the most modern processing techniques such as pre-stack migration nor can it handle the needed concurrent processing of COCORP and non-COCORP data sets required by global syntheses of seismic data.